Participant Support for CyberBridges: Developing the next generation of cyberinfrastructure faculty for computational and data-enabled science and engineering

In 2010, the NSF Office of Cyberinfrastructure launched a new Faculty Early Career Developent (CAREER) program to support investigators working on interdisciplinary research in cyberinfrastructure and the application of cyberinfrastructure for science and engineering research. This award will support a 1.5 day workshop during June 25-26, 2012 in Arlington, VA to bring together the community of OCI CAREER awardees. The workshop objectives are to: (1) encourage networking and discussion among awardees; (2) provide a forum to facilitate the discovery of new synergies and connections among researchers from the community; and (3) provide inspiration and motivation for new research through a series of keynote presentations from leaders in the areas of Grand Challenges in Cyberinfrastructure, Big Data, Computational Science, High Performance Computing, and Visualization. By bringing together leaders from these areas with cyberinfrastructure researchers, the workshop seeks to inspire new approaches to solving critical research problems. The results of the workshop will be widely disseminated through a final report and website containing project reports and presentation materials.